Parental Magmas and Magmatic Fluids of the Lilloise Intrusion, East Greenland and Their Possible Relation To the Iceland Hotspot

The principal investigators will study the Lilloise Intrusion of East Greenland. In particular, they hope to discover the nature of the mantle-derived magmas from which this deposit formed, and to relate this to present-day igneous events in Iceland. This study also will have important geological implications relative to crust/mantle interactions during the initial stages of rifting of the North Atlantic.